Collaborative Research on the Northwest Water Polynya: Numerical Modeling

This proposal is part of an integrated scientific investigation to study the properties of the Arctic Ocean, atmosphere, sea-ice and biology in the Northeast Water (NEW) Polynya, which occurs near northeastern Greenland, in order to gain an integrated understanding of Arctic shelf-slope processes. This element of the NEW program will conduct numerical experiments with a three-dimensional ocean model. Numerical experiments will help guide planning for initiating field research and hydrographic surveys. Data gathered during the first field season will be used to validate the model. When model and observed currents are in agreement, the model will begin to integrate the physical and biological components to evaluate heat and carbon budgets associated with the polynya.